U.S.-Mexico Workshop: Bridging Nanoscale Forces and Interfacial Phenomena to the Macroscopic World; Mexico; Cancun, Mexico, January 2006

This award will help to support a workshop on nanoscale forces and interfacial phenomena to be held in Cancun, Mexico around January 2006. Organized by Dr. Norma Alcantar of the U. of South Florida and Dr. Phillip A Pincus of the U. of California-Santa Barbara, together with international partners Dr. Tomas Viveros of the Universidad Autonoma Metropolitana in Iztapalapa, Mexico, Dr. Suzanne Giasson, of the University of Montreal, and Dr. Roger Horn of the University of South Australia, the workshop will involve representatives from approximately 42 universities worldwide and international student participation.

The meeting will bring together scientists that are international leaders in measuring and analyzing surface forces and interfacial phenomena to provide a substantive training experience for students, postdoctoral researchers and investigators who are at early stages in their career. It will feature a discussion of critical issues facing colloid and interface science. Students and postdoctoral researchers will present their work in poster sessions. Ultimately, the workshop aims to foster collaborations at multiple levels (interdisciplinary and internationally) to attack complex problems that connect the nanoscale world to the macroscopic world. The Office of International Science and Engineering and the Directorates of Engineering and Mathematical and Physical Sciences are sharing in the funding of this activity.